RUI: Praxiological Theory and the Engineering Design Process

This research aims to contribute to the advancement of scientific knowledge by making explicit certain aspects of the engineering design process which are currently mainly implicit. This research will examine the general design theory of the praxiological school of philosophy with respect to a particular control systems design program. The principal investigator will study the mechanism whereby the general theory of praxiology is related to the particular design program. An articulation of this mechanism will aid the development of other design programs.